Student Travel Support for MVAPICH User Group (MUG) Meeting

Modern High-Performance Computing (HPC) systems are rapidly evolving with respect to processor, networking, and I/O technologies. In such a rapidly changing environment, it is critical that next-generation engineers and scientists are exposed to the modern architectural trends of HPC systems and learn how to use the features of these technologies to design HPC software stacks and learn about the process of open-source software developments and its sustainability. The annual MVAPICH User Group (MUG) meeting provides an open forum to exchange information on the design and usage of MVAPICH2 libraries, which are open-source, high-performance and scalable MPI libraries to take advantage of RDMA technology. Travel funding from this project will enable a set of undergraduate and graduate students to attend the MUG meeting. Their participation will help them to enter the next-generation HPC workforce with increased expertise in software design, reuse, and sustainability. The project, thus, serves the national interest, as stated by NSF's mission: to promote the progress of science; to advance the national health, prosperity and welfare; or to secure the national defense.

The MVAPICH project focuses on the design of high-performance MPI and PGAS runtimes for HPC systems. Over the years, this project has been able to incorporate new designs to leverage novel multi-/many-core platforms like Intel Xeons, NVIDIA GPGPUs, Open POWER, and ARM architectures, coupled with Remote Direct Memory Access (RDMA) enabled commodity networking technologies like InfiniBand, RoCE, Omni-Path, and iWARP. An annual MVAPICH User Group (MUG) meeting was created six years ago to provide an open forum to exchange information on MVAPICH2 libraries. The funding under this grant aims to achieve increased participation of undergraduate and graduate students working in the HPC area (systems and applications) in the annual MUG event. The requested student travel fund helps attract a set of students from a range of US institutions. Participation in an international event, such as MUG, enables students to obtain global picture of the developments happening in the rapidly evolving HPC domain and open-source software design. The selection committee plans to stress diversity to attract students from minority and under-represented groups.